RIMI: Student Research and the Computational Mathematics Group

9450448 The proposed research would concentrate on two main areas of computational mathematics: ( 1.) Design and Implementation of Crystallographic Fast Fourier Transforms ( 2.) Structure of Euclidean Distance Matrices and Optimization Problems. The proposed research would strengthen the research capabilities of the University of Puerto Rico at Mayaguez in the area of computational mathematics.